Higher Plant Ca 2+-ATPase: Gene Regulation and Cellular Function

In the prior NSF grant period this laboratory cloned and characterized a higher plant (tomato) calcium-ATPase gene closely related to the sarcoplasmic/endoplasmic reticulum calcium-ATPase of animal cells. They also observed that its messenger RNA abundance increased dramatically following salt exposure, suggesting that this calcium-ATPase may play a role in the mitigation of deleterious effects of elevated cytosolic calcium, proposed to result from extracellular salt exposure. Molecular cloning of this calcium-ATPase now provides the basis to characterize it at the molecular level, including a critical assessment of its role in cellular responses to salt, and perhaps other stresses. The objectives of the current phase of this research are to: 1) establish the precise subcellular localization of this class of calcium-ATPase, 2) elucidate the basis for the accumulation of multiple calcium-ATPase messenger RNA transcripts, 3) determine the factors regulating calcium-ATPase gene expression, especially in response to stress, and 3) critically assess its physiological function in responses to environmental stress using transgenic plants with altered calcium-ATPase gene expression. %%% The regulation of cytosolic calcium levels is widely recognized as a central element of cellular regulatory processes in eukaryotes, and is essential to the proposed role for calcium as a second messenger. In addition, it has been proposed that salt and chilling stress in plants may induce, as the primary cellular insult, increases in cytosolic calcium levels. Both calcium- ATPases and a calcium/proton pumps maintain calcium homeostasis in the cytosol of plant cells. Based on extensive characterization of ATP-dependent calcium transport in membrane vesicles prepared from plant cells, there appear to be at least two calcium-ATPases with properties likely to be important in the maintenance of very low cytosolic calcium levels: one located in the plasma membrane and one in the endoplasmic reticulum membrane. In spite of the relatively extensive characterization of calcium transport activities catalyzed by plant calcium-ATPases, little success has been reported in their purification and molecular characterization. Research from this laboratory has begun to fill in these gaps, and the proposed continuation of these studies promises to provide more critical information on the cellular mechanisms involved in plant responses to their environment.